A Program of Measurements of High Energy Electron Interactions with Nuclei at the Stanford Linear Accelerator Center

Research will be carried out in high energy electron scattering at SLAC. The principal focus will be on experiments which probe the quark substructure of nucleons and few nucleon systems. Part of the research activities will be to coordinate the Nuclear Physics at the SLAC program and facilitate experiments in SLAC End Station A.